CCLI Phase II: E-Quality for Manufacturing (EQM) Integrated with Web-enabled Production Systems for Engineering Technology Education

This CCLI Phase 2 Expansion Project is advancing engineering technology education through the integration of new E-quality control for manufacturing (EQM) curriculum with existing Web-enabled manufacturing systems in robotics/automation/CNC. The project is: (1) offering emerging technologies in EQM for engineering technology education, which holds enormous potential for increasing product quality that is critical to the nation's manufacturing competitiveness; (2) developing new courses, restructuring existing courses, and developing laboratory modules aligned with the current industry trends toward advanced, network integrated production systems complemented by the remote quality control and monitoring framework; (3) conducting faculty/industry workshops at the university, community college and high school levels; (4) stimulating interests of minority, women, and high school students in advanced technologies, hence increasing overall student diversity; (5) continuously improving the project outcomes and ensuring quality by the use of an innovative Six-Sigma management approach and a wide range of outcome measurements along with a cyclic evaluation model; and (6) disseminating project results to benefit university, community college, high school students, faculty and industry practitioners.